Number Theory and Algebraic Geometry

Abstract

Noam Elkies

The investigator studies problems in number theory, notably
the arithmetic of varieties such as elliptic curves and surfaces
and their relations and applications to other areas of mathematics
such as error-correcting codes and Euclidean lattices. Specific
projects include: proof and computational exploitation of new
relations between p-adic modular forms of weight 3/2 and the arithmetic
of quadratic twists of odd analytic rank; refinement of the Shioda-Usui
theory relating Mordell-Weil lattices with Weyl groups, and
generalization to certain complex reflection groups; continued study
of optimal recursive towers and the investigator's modularity conjecture
for such towers; extended study of the connection between bilinear
(Somos) recurrences, theta sequences, and explicit moduli spaces;
and novel applications of lattice reduction to study and efficiently
compute solutions of Diophantine equations and inequalities.

The investigator continues his study of problems in number theory
concerning the mathematical structure of algebraic solutions
of equations. This should lead both to better understanding
of those equations and their solutions (elliptic curves, etc.),
and to further connections with other topics such as efficient
computation, error-correcting codes, and sphere packing.